Proposal to Develop, Deploy and Operate the Routing Arbiter

9321043 USC Postel The major project elements for the routing arbiter include advancement of Internet routing algorithms with respect to scaling and stability issues, routing information registration and dissemination for the network service providers serving the Internet, deployment of route servers to aid in the dissemination and real time maintenance of the global Internet routing system, and coordination and sharing of technical information in support of the Internet operations community. A key task for the routing arbiter will be to enhance the use of new switched services offered by the telecommunications carriers, sucy as ATM, in place of dedicated point to point technology that is widely deployed in wide area internets. This proposal is a part of a collaborative effort with Merit. Although both Merit and USC teams will collaborate in all areas, USC will take the lead with the route servers, advanced routing development, provision of a testbed and routing engineering and Merit will take the lead for management and coordination, transition, and operations. While Merit will take the lead in overall coordination, USC will see that apprpriate collaboration is accomplished in research and development.